Lifting the Veil: A Multiwavelength Picture of the Galactic Plane and of its Stellar Remnants

AST-0602099
Agueros, Marcel

Dr. Agueros is awarded an NSF Astronomy and Astrophysics Postdoctoral Fellowship to carry out a program of research and education at Columbia University. He will correlate the new Multi-Array Galactic Plane Imaging Survey (MAGPIS) with existing surveys to construct a detailed, multiwavelength picture of the Galactic plane and to explore its population of supernova remnants and pulsars. MAGPIS is a Very Large Array (VLA) radio survey of sensitivity, resolution and dynamic range more than an order of magnitude greater than any previously available.

Dr. Agueros will also reach high school students from traditionally underrepresented groups by working with programs such as the Science and Technology Entry Program at
Columbia to develop a series of astronomy lectures for their students. He will also participate in teacher-training activities such as those organized by the American Museum of Natural History (AMNH). Dr. Agueros's outreach program builds on relationships that he has developed with several organizations in New York City and on his previous work to understand and address the "leaky pipeline" that prevents many students from underrepresented populations from pursuing higher education and careers in astronomy.